Gordon Research Conference on Mammalian DNA Repair Mechanisms

Smerdon 9418287 Abstract The Gordon Research Conference on Mammalian DNA Repair Mechanisms will be held in Ventura, California January 30 to February 3, 1995. %%% This conference will address the various areas of research into the molecular mechanisms involved in repair of DNA in mammalian cells and the biological consequences of incomplete or inaccurate repair. This is an international conference which will bring together scientists of all ages to interact in a meeting format which encourages communication. ***